Charge Dependence of Cosmic Ray Solar Modulation

The anti-correlation between cosmic ray fluxes and the level of solar activity (solar modulation) is caused by magnetic field irregularities carried by the solar wind that sweep charged particles out of the solar system and/or decelerate them. Since electrons and nuclei have greatly different charge/mass ratios, the relation of velocity and magnetic rigidity is significantly different for these two particle species. If the heliospheric magnetic field has long range order, the charge sign of cosmic ray particles can affect their propagation. A major failure of current modulation model simultaneously to reproduce electron and nucleon modulation is related to reversals of the solar magnetic field which occur every eleven years. Charge dependence should change when the solar field reverses, but in a way different from what is observed. The PIs propose a research program designed to extend measurements of charge dependence of cosmic ray solar modulation through comparison of electron data to be obtained under this proposal with electron and proton data available from an instrument on the ICE spacecraft as well as other data from the literature. This investigation will determine the extent to which large scale order of the heliospheric magnetic field is important in determining trajectories of charged particles in the heliosphere.